Nonmonotonic Temporal Reasoning

This research focuses on extensions to classical logic which are both - flexible enough to represent aspects of the real world such as approximate knowledge and change in knowledge over time which escape traditional logic - theoretically sound and capable of being built into effective computer systems. A particular emphasis is on sound principles which enable a reasoning system to successfully ignore irrelevant parts of its knowledge in arriving at conclusions. The importance of this work is in bridging the gap between pure theory about the consistency and effectiveness of various new logics and real world applications in computer reasoning systems and robots.